NSF Technology Scholars Program

This program provides scholarships for students pursuing degrees in mathematics, electrical engineering technology, mechanical engineering technology, pre-engineering, and computer science. Technology Scholars are supported through a series of orientations, seminars, mentoring activities, internships, and other special events to ensure that they persist in their educational and career goals. Scholars develop experiential knowledge of job prospects in high technology fields and establish valuable connections with other professionals, prospective employers, and higher education representatives. Scholars maintain an on-line
personal growth portfolio that is monitored by faculty advisors.